Reproducing Kernel Hilbert Space Methods in Statistical Model Building and Data Analysis

Abstract
Wahba, Grace G.
Proposal ID: DMS - 0505636

Original Title: Reproducing Kernel Hilbert Space Methods in Statistical
Model Building and Data Analysis

New Title: Positive Definite Kernel Methods in Statistical Model
Building and Data Analysis

Positive definite functions (a.k.a."kernels") play a key role in
statistical model building, classification, clustering and data mining. Such kernels provide a distance metric for elements in their domain, which may be functions (as in Reproducing Kernel Hilbert Spaces), or, more recently, trees, graphs, images, sounds, DNA and protein
sequences, microarray gene expression data, text messages and other
objects. A reasonable distance metric is a prerequesite for prediction, classification, and clustering, and methods for obtaining such metrics
are an area of active research. The proposer will introduce, develop and study the properties of a new class of nonparametric methods for obtaining kernels in situations where noisy, crude, incomplete information related to dissimilarity between pairs of objects in arbitrary sets is available. The methods are called
regularized kernel estimation, since they involve a tradeoff between
fitting the crude information available and a penalty or complexity functional on the kernel, analogous to, but not the same as classical
regularization and the bias-variance tradeoff. Optimal tuning and dimensionality reduction procedures will be proposed and their properties studied. The methods proposed are believed to have new and important computational and theoretical advantages, and these will be
demonstrated, by development of efficient computational algorithms, by
simulation, by development of the theory, and by application to
a variety of scientific problems.

This work is motivated by the goal of obtaining better methods for
clustering and classifying objects mentioned above, by obtaining
improved ways to describe the "distance" betweein objects.
For example, microarray gene chips may contain information
concerning, e. g. the type of tumor whose DMA is being studied,
and it is anticipated that this research will provide
improved methods for extracting this information
in cases where it is difficult to identify the type of tumor,
and this will ultimately result in better diagnostic and treatment
outcomes. Similarly, it is of interest to cluster protein sequences into functional classes, with the goal of identifying function by associating sequences that are "nearby".
It is anticipated that the present research will provide a more efficient way of extracting information from crude or incomplete dissimilarity data and, contribute to the long-term technology of
understanding protein function. Other potential applications include
improved classification of weather states, with the goal of clustering
and classifying local situations that have similar outcomes, signal
detection in large neutrino detectors, classification of astronomical bodies, and classification and clustering problems in a variety of other scientific fields.